Shipboard Technicians

94-00799 Longfield The University of Hawaii (UH) requests renewed funding for shipboard technician activities associated with the research vessel MOANA WAVE, a 213-foot vessel. The MOANA WAVE is owned by the Navy and operated by UH. In calendar year 1994, the MOANA WAVE will support a total of 109 days of NSF-funded research, primarily in the central Pacific. UH technicians will be responsible for operating and repairing instruments while at sea, maintaining instruments ashore and assisting with scientific operations necessary before and after cruises. Funding for Years 2 and 3 of this award will be negotiated when ship schedules for 1995 and 1996 are finalized.